Scholarship Support for Student of Technical Disciplines

This project annually provides 29 students with a scholarship sufficient to cover tuition, fees, and books. In addition, a comprehensive set of academic support services are provided to ensure that each recipient attains a 4-year degree and is prepared for graduate studies and/or placement in an appropriate workplace. Each of the recipients is majoring in mathematics, computer science, or engineering, and is either a sophomore, junior, senior, or graduate student.

The project provides scholarship recipients with the following academic support services: admission and matriculation assistance, workshops, access to a study center, advisement and counseling, tutoring, support in joining and participating in professional organizations, eligibility to compete for additional grant funds reserved for engineering, computer science, and math students, support in securing appropriate internships and summer employment, professional activities, job placement assistance, and involvement in a social support network.